California Science Center's Air and Space Gallery

The California Science Center Foundation will develop the California Science Center's Air and Space Gallery, a 12,000-square foot exhibit space. The California Science Center will reopen Aerospace Hall (closed in 1998) with new and re-designed exhibits and offer a full complement of learning experiences. Funding from NSF will support design, fabrication and core program development of the Air and Space Gallery. The Gallery will feature four themed areas that explore the depth and breadth of aeronautics and space exploration: Air and Aircraft; Humans and Their Spacecraft; Mission to the Planets; and Stars and Telescopes. Also featured will be a Discovery Room for young learners and their parents, a changing exhibit gallery and educational programs for the public and for schools.